Three-Dimensional Seismic Imaging: Application to the Santa Cruz Mountains, California

This research is to analyze data collected by the new IRIS/NSF PASSCAL seismic instruments deployed in the Santa Cruz Mountains within hours of the Loma Prieta earthquake. The objective is to investigate the seismic velocity structure in the epicentral region using three-dimensional seismic imaging techniques involving both P and S waves. Earlier work has suggested that the nature of the seismic activity is controlled by the mechanical properties of the material along the fault, both in terms of the ability to store strain energy along the fault and the possible existence of competent crustal blocks that force a change in fault geometry. This research is a component of the National Earthquake Hazard Reduction Program.